RUI: Development of a Local Area Computer Cluster for Moss Landing Marine Laboratories

This Oceanographic Instrumentation acquisition project is provided under the NSF Research for Undergraduate Institu- tions (RUI) guidelines. The Moss Landing Marine Laboratory (MLML) of San Jose State University will acquire computer hardware and software to form a small local area network with other existing equipment. Students at MLML are discovering that multi-user, multi-tasking computer systems are becoming more prevalent in marine science research and that having access to this type of computer environment is important. The network will also enhance department-wide computer use by distributing data bases, word processing software, and data analysis software, including statistics, oceanographic data reduction, mapping, contouring, and graphics. The installation of this network will enhance all teaching and NSF-sponsored research programs.